NSF Young Investigator

9357505 Barrera This research is directed towards the processing of advanced materials with the Buckminsterfullerene, C60, as a reinforcing species. The emphasis is to develop an understanding of the fullerene-metal interaction necessary for producing these materials. The research takes advantage of the atomic analysis of surface and synchrotron radiation techniques. %%% The knowledge generated in this program is fundamental to the understanding of the properties of lightweight metal-matrix composites. This understanding can be applied to tailoring the properties of these technologically useful materials. ***